Generation of Mutants Lacking the Dopamine D3-receptor Gene

Dopamine is an important neurotransmitter in the central nervous system and its various actions are mediated by several dopamine receptor subtypes. One of these subtypes, designated as the D3 receptor, is expressed in phylogenetically older regions of the brain, including the limbic system. This suggest that D3 receptors play a role in cognition and in the expression of emotive behavioural phenotypes. However, conventional animal studies on the particular function of D3 receptors proved to be difficult because of the high homology and the similar pharmacological characteristics of this receptor subtype with other brain dopamine receptors. To circumvent these difficulties, this proposal lays the groundwork for studies on the specific function of D3 receptors in the whole animal by generating mutant mice that lack functional D3 receptors. This will be achieved by introducing a mutant (non-functional) D3 gene into embryonic stem (ES) cells of mice. Such ES cells are then used to generate chimeric mice that have the ability to transmit the mutant D3 gene to their offspring. Mutant offspring will have a decreased (heterozygous mutants) expression of the D3-receptor protein and such mice can be interbred to generate homozygous mutant mice in which the D3 receptor expression is abolished. Initial studies on such mutant animals aim at testing whether a decreased or abolished D3-receptor protein expression affects the development of brain regions in which D3 receptors are normally expressed. At present, nothing is known about the importance of D3 receptor expression for the normal development of the brain. Thus, comparative anatomical studies of such brain sections obtained at defined developmental stages from mutant and normal (wildtype) mice are proposed. Furthermore, because of the significant anatomical overlap in the expression of D3 receptors and another (very similar) dopamine receptor subtype (named D2), and the potential functional complementarity bet ween these two receptor subtypes, one might expect changes in the expression of D2 receptors to occur in response to a decreased or abolished expression of D3 receptors. Such changes could mask the functional consequences of a "loss of D3 receptor expression" in our mutant animals. Therefore, experiments are proposed that will test whether the expression of D2 receptors differs in wildtype and D3- receptor-mutant animals. The work proposed here will provide a powerful mouse model for future studies on the importance of D3 receptor expression for the expression of certain behavioural phenotypes.